Mass Ratios and High Order Multiplicity of Young Binaries

Dr. Lisa Prato will obtain and analyze high-resolution infrared spectra of very young stellar binaries. The target stars are of the T Tauri type, and represent the early evolutionary phases of stars like the Sun. The goal of the project is to determine dynamical mass ratios down a fraction of the mass of the Sun. Mass is the most fundamental stellar property and, once composition is set, determines all properties of a star's life and death. In spite of its key importance, however, astronomers' knowledge of young star masses, mass ratios, and higher order multiplicity is incomplete because to date no statistically large samples exist. This project will put the T Tauri mass ratio distribution and higher order multiplicity frequency on a sound statistical basis. The resulting mass ratio distribution and sub-distributions, possible with such a large sample, will be compared to theoretical predictions, and to mass ratio distributions for older stars.

These data are anticipated to aid theorists developing models of close binary formation, planet formation, stellar evolutionary models, and cluster formation. Dr. Prato wll also provide "sidewalk astronomy" open night observing and slide shows for senior citizen communities in Flagstaff, Arizona. She will also offer free astronomy mini-courses at Lowell Observatory for seniors. Prato will continue her intensive mentoring activity with students and will encourage them to actively take part in outreach activities associated with this proposal.